NSF Accel-Net-Implementation: Building Network Partnerships to Accelerate Learning Innovation

The objective of this project, “Building Network Partnerships to Accelerate Learning Innovation,” is to build an interdisciplinary network-of-networks focused on learning, development, and context as they relate to national education needs, with particular attention to science, technology, engineering, and mathematics (STEM). The AccelNet advances methods for conducting convergence science at scale and shows how leading international science networks can accelerate learning in the United States. The project uses advances in technology, social science, and data science to create collaborative resources that strengthen the science of learning and education. These collaborative networks have broad reach, allowing the research team to assemble cross-functional teams that draw on expertise from research institutions and partners at home and abroad. This reach serves a national purpose. Evidence about how learning develops in other countries and contexts returns home as better tools, better training, and better outcomes for American education. The project aims to strengthen U.S. educational and technological foundations by connecting networks that inform science and build on the knowledge of local community leaders.

The project develops a sustainable system of communication, synthesis, best practices, research, and innovation for a network-of-networks designed to accelerate the science of learning. The network includes neuroscientists, psychologists, data scientists, engineers, designers, development practitioners, philanthropists, educators, and policy makers. Together, these groups create shared infrastructure to address pressing challenges in the science of learning and meet national education priorities, including STEM readiness and innovation in educational technology. The network draws on resources from four existing networks: the Global Science of Learning for Education Network (GSoLEN), a network of scientists, policy experts, philanthropists, and practitioners focused on learning and education; the Center for Applied Cognitive Science (CACS), a center that applies cognitive science to relevant problems using contextually appropriate measures and approaches; the Mind Center for Educational Technology (MindCET), an educational technology and innovation network; and Global Communities, a development network. The international scope of these networks is an asset to the United States. It gives American researchers, educators, and technology developers access to findings, methods, and testing grounds that no single country can produce alone. The current AccelNet project specializes in learning, education, educational technology, STEM workforce development, and policy.

The AccelNet aims to train an intellectually agile, interdisciplinary group of scientific leaders capable of scientific and technological collaboration for the public good. Mentoring the next generation of scientists within the communities and the networks can build a stronger way of doing science. Development of self-regulation (i.e., individual’s ability to manage impulsive actions by inhibiting or redirecting behavior) serves as the prototype research challenge for this project because self-regulation matters for educational, social, and economic outcomes, including success in STEM disciplines and readiness for a technology-driven workforce. Notably, higher self-regulatory skills in children are thought to underscore more effective STEM learning, creating an imperative to focus not only on the ability to learn content but to understand optimal states for learning. Self-regulation is relevant to all domains of learning and well-being, including digital learning environments and educational technologies, and addressing it requires mobilization at a scale suited to a network-of-networks. The developmental trajectory of self-regulation is not linear or universal, however, and varies broadly across contexts and populations. This variation is why international collaboration serves national goals. Synthesizing what partner networks learn across countries can give the United States a fuller picture of how self-regulation develops, stronger evidence for practice and policy, and better preparation for its STEM and education workforce.